Seiberg-Witten and Gromov invariants of symplectic 4-orbifolds and some applications

DMS-0304956
Weimin Chen

The Principal Investigator plans to continue his work in gauge
theory and symplectic, low-dimensional topology. More concretely,
he plans to study the following problems: (1) general properties of
finite groups of symplectomorphisms of a symplectic 4-manifold,
(2) whether a symplectic circle action on a 6-dimensional manifold
is Hamiltonian if its fixed-point set is non-empty and finite, and
(3) general, global restrictions on the occurrence of quotient singularities
in an algebraic surface. A unifying theme in these studies is a theory,
yet to be developed in this project, on the Seiberg-Witten and Gromov
invariants of a symplectic 4-orbifold, which will be built on and
substantially extend the related fundamental work of Taubes on
symplectic 4-manifolds.

A 4-dimensional orbifold is a space which locally looks like the space-time
we all live in, except that there is a certain degree of ambiguity caused by
a finite symmetry occured locally. Many examples of this kind of space can be
found easily and naturally in Mathematics (e.g. topology and geometry) as well
as models in Theoretical Physics (e.g. orbifold string theory). The proposed
research seeks to understand a fundamental duality in a 4-dimensional orbifold
between a certain type of fields that are distributed all over the space and a certain
type of worldsheet that is wiped out by a collection of strings in the space which
is condensed in a 2-dimensional subspace. When there is no such
ambiguity of finite symmetries, such a duality is well-understood, and
is a fundamental piece of
mathematics.